Host-Parasite Relationships in Bear Lake Fish, Utah-Idaho

This research project is to assess the impact of parasitism on fish populations in the Bear Lake fishery. The assessment will be based on both parasite and host population dynamics. The P.I. will also identify parasite species that have potential as biological tags to study fish populations in Bear Lake. The use of parasites as biological tags to study food habits of Bear Lake fish will augment traditional fish diet studies, which only reveal prey fed upon immediately prior to capture. Information gathered from this research will be useful in the management of the Bear Lake fishery and will contribute to our understanding of host-parasite ecology in aquatic ecosystems.